1993 Symposium on Integrated Systems; March 17-19, 1993; Seattle, Washington

This is a conference that draws together researchers from both universities and industry across a wide range of disciplines. The emphasis of the conference is the design of systems taking into account chip design, packaging, and interconnection issues. By holding one session track instead of parallel sessions, the organizers emphasize the importance of a firm grasp of all of these issues for the modern system designer.